Subduction Zone Segmentation and the Potential for Great Earthquakes Along the Eastern Aleutian-Alaska Peninsula Arc

Project investigates the nature of seismic gaps and their relationship to long term seismic potential for a number of plate boundaries. Project collects and analyzes historical seismograms and phase information from earthquakes in the Aleutian Arc. Improves location and magnitude estimates, models body and surface wave data for seismic moment, rupture direction and area, and source time function. Direct application to the earthquake hazards reduction program.